Mathematical Sciences: Statistical Inference for Extreme Values

The principal investigator will continue his research in the extreme value theory, in collaboration with de Haan. The particular interest for this project is asymptotic theory of the extremes of multivariate negative exponential distributions. Theory of extremes has a number of applications including meteorological data, flood and wind measurements. The behavior of the multivariate extremes depends not only on the stability of the marginal distributions but the dependence structure of the multivariate distributions. Study will be made for various dependence functions. Estimation of the dependence functions will be studied.